Superpositions of Chiral Amplitudes

Professor Robert A. Harris at the Department of Chemistry, University of California at Berkeley, is supported by a grant from the Theoretical and Computational Chemistry Program at NSF for theoretical research related chiral coherences. There are several topics where research is required in order to establish fundamental understandings of these coherences and of the special chemistry which may arise from them. One important topic concerns the investigation of methods to prepare chiral coherences; in particular, to identify methods which will have a high degree of coherent behavior. Another important topic concerns the measurement of this coherence; here, research to asses the usefulness of neutron scattering as a way of making such measurements could lead to a valuable experimental tool. In addition, research is required to develop a suitable theory of second harmonic generation in order to interpret and explain the activity of chiral adsorbates on surfaces. The concept of chirality, the notion of left handed and right handed chiral molecules, has been known and studied by chemists for sometime. The recent discovery that excited states of molecules can be used to create coherent superpositions of chiral molecules opens the way to a range of new phenomena. In particular, it may open the way to the discovery of systems which have a new chemistry governed by the principles of superposition and parity conservation.